A Deep Wide-Field Weak-Lensing and Photometric Survey

A deep wide field weak lensing and photometric survey

Nicholas Kaiser

Dr. Kaiser is performing a deep, multi-color, wide area photometric survey that covers approximately 13.5 square degrees complete to a magnitude of 26. He is using the Canada-France-Hawaii Telescope (CFHT) and also the University of Hawaii 88 inch telescope. The instrument used is a new 12Kx8K CCD camera built for the CHFT. These data will provide a measure of the gravitational lensing effect on the shapes of the faint background galaxies at redshifts between 1 and 3. The shapes of these galaxies are used to generate a map of the gravitational shear field; i.e., the projected tidal field of foreground structures. The power spectrum and auto-correlation of this shear field provides estimates of the primordial mass fluctuation on large scales.